AF: SMALL: Learning to Parsimoniously Model and Compute with Big Data

This project develops mathematical and computational approaches for big data exploitation. Fast and online
algorithms that learn and adapt as data arrives and changes are developed. How to automatically
understand and reduce redundancy in the data, for a given task, is also addressed in this project. Big data
comes in multiple forms, e.g., audio and video, audio and text, video and weather, video from multiple
sources, brain imaging from multiple modalities, friendship networks and individual preferences. This is
also addressed in this project. The broad impact of the research is born in the large and diverse
applicability of big data and in the techniques here developed. In the education arena, the developed
Internet classes have an audience of tens of thousands, and the project provides unique integration of
research and undergraduate education via different Duke initiatives.

The framework follows the parsimony theory of sparse modeling. Challenges are addressed with a gamechanging
paradigm: learning to optimize; on-line learning what the task-dependent optimizer is expected
to do, developing computationally efficient algorithms to approximate the ideal behavior of sometimes
unknown optimizers. The work derives novel multi-modal formulations for network inference, and realtime
on-line robust PCA and robust NMF, fundamental tools in big data modeling and exploitation; as
well as robust 3D shape, networks, and multi-modal matching. The formulation elegantly solves bilevel
optimization problems rendering it efficient for classification and signal separation tasks. Sparse
modeling is extended to new venues and algorithms, making such techniques usable for big data. The
formulations and theoretical foundations are complemented with numerous applications.